Characteristics of the Oceanic Lithosphere and the Propagation of Pn and Sn Seismic Phases

Earthquake recordings made by seismometers at the bottom of the Pacific Ocean contain important information about the structure and evolution of Earth's tectonic plates. When a plate initially forms near a mid-ocean ridge, for example, pods of melt can become trapped within the plate as it cools. These pockets of frozen melt have a different composition than the surrounding material and as such, alter how seismic waves propagate. This project plans to examine existing data recorded by two arrays of ocean-bottom seismometers deployed in the western Pacific. Novel observational and modeling techniques will be used to search for pods of melt emplaced during the formation of the tectonic plate. An important aspect of the project is to reconcile competing models of the lithosphere-asthenosphere boundary, that is, the transition from the rigid lithospheric plate to the more pliable rock below. Certain types of seismic observations suggest quite convincingly that the asthenosphere is mechanically weak relative to the overlying plate (lithosphere) but if this is the case, it is difficult to explain the existence of the seismic waves that are recorded. One hypothesis, which will be explored thoroughly, is that the addition of small-scale structures such as the frozen melt pockets can reconcile the two observations. The project supports the training of a postdoctoral investigator as well as undergraduate students.

Pn and Sn waves - high frequency guided waves traveling within the lithosphere - provide one of the few ways that the fine-scale structure of the lithosphere can be probed. A detailed analysis of Pn and Sn waves recorded on two arrays of ocean-bottom seismometers (OBS) in the western Pacific will be carried out during this project. By examining the detailed waveforms in addition to the traditional approach of modeling the overall shape of the coda, it will be possible to resolve the overall velocity structure of old oceanic lithosphere better, the amplitude and scale of heterogeneities within the lithosphere, and the attenuation structure of the lithosphere. In turn, these observations will add to our understanding of the processes of lithospheric formation. The approach will be to combine detailed data analysis using new analytical techniques applied to more high quality Pn and Sn records than ever available before with extensive modeling of propagation of seismic waves in 3-D heterogeneous media.